A Model for Anomaly Resolution in Scientific Change (History and Philosophy of Science)

Science is a problem-solving activity. This project will explore strategies for solving problems, especially strategies for forming, testing and revising hypotheses. In previous work, strategies exemplified in a historical case were analyzed, including strategies for resolving anomalies for a theory and for producing an improved version of the theory. This project will test the sufficiency of such strategies in a computer model, using techniques from artificial intelligence. The model will provide a method for representing a biological theory (Mendelian genetics) and will incorporate reasoning strategies to model changes in that theory. Experiments with alternative reasoning strategies will be explored with the model. The completion of this project will contribute to the growing body of knowledge about computational methods for representing scientific theories and reasoning about such theories. Interactive activities include teaching a graduate course on computational philosophy of science, giving two departmental colloquia presentations, and, with support from the Cognitive Science Center, organizing a symposium on Career Opportunities for Women in Cognitive Science. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.